Multi-agent spatial coverage via variational inference

This NSF project aims to address the critical societal need for deploying a limited number of autonomous, interconnected agents—such as robotic teams, drones and sensor networks—to provide spatial coverage during dynamic, large-scale events like natural disasters, wildfires, and environmental crises. Existing coverage methods rely heavily on rigid geometric space-partitioning, which struggles with complex agent capabilities—such as direction-dependent and probabilistic sensing/service limits—and real-world environmental dynamics. To overcome these limitations, this project introduces a transformative approach that views spatial coverage through the lens of artificial intelligence (AI) and statistical learning, enabling multi-agent systems to dynamically adapt to complex environments. The intellectual merit lies in establishing a novel, unified framework that combines probabilistic modeling, statistical analysis, and optimization theory to provide rigorous mathematical guarantees for coverage quality and operational efficiency. The broader impacts of this project are multi-fold: it directly enhances national capabilities in emergency response and environmental monitoring, delivers open-source software tools to the research community, and integrates these advanced autonomous systems concepts into university curricula and K-12 outreach initiatives to inspire a diverse next generation of engineers.

The technical objective of this proposal is to develop new theoretical foundations for multi-agent deployment by framing spatial coverage as a distribution-matching optimization problem. Specifically, the project leverages variational inference (VI) theory from statistics and machine learning alongside combinatorial optimization via submodular optimization. The joint probabilistic spatial coverage capability of the agents is optimized using Kullback-Leibler divergence (KLD) to match the target spatial distribution of events of interest. The research is structured around two main technical thrusts: (1) a two-tier framework that utilizes constrained Stein variational gradient descent (SVGD) to sample representative points of interest while preventing redundant sensor overlap, and (2) a distribution-steering methodology that models agent capabilities as parameterized Gaussian mixture models (GMMs) and employs natural gradient descent (NGD) to track dynamic distributions in real time. Ultimately, this research advances coverage optimization for intelligent systems, contributing robust algorithms and theoretical guarantees to the field of AI-driven autonomy.